Elementary, Secondary, and Informal Education: Video Resources for In-Depth Investigations of Pond Organisms

The overall aim of this project is to develop a set of videos on a CD-ROM centering on the investigations of pond organisms to be used by elementary and middle school teachers as complements to existing life science curricula and environmental education programs. This product will be published nationally by a commercial publisher.

During the three years of the project the videos will be pilot tested by EDC and the New England Aquarium staff and then field-tested in a range of school districts.

The collaborators in the project will be the Education Development Center and the New England Aquarium. Peace River Films and Squid Country Safari will be subcontractors producing the videos and adapting them for a CD-ROM.